REU: Undergraduate Research Experiences in Estuarine Processes

9531599 MACKIERNAN This award supports a Research Experience for Undergraduate (REU) SITE to provide research experiences for summer fellows to participate in interdisciplinary research programs which examine the physical and biological functioning of estuarine ecosystems. It will acquaint the students with the excitement and opportunities of academic research, and encourage them to pursue graduate studies and a career in ocean sciences ***